ITR: (Software & Hardware Systems) Piazza: A Platform for Wide-scale Distributed Data Sharing and Integration

This research seeks to create a new global-scale information facility
on the Internet in which structured data, rather than raw text, is the
key element supported. Currently, the information provided on the
Internet consists of simple text-based documents (HTML), or other
unstructured types such as images and streams. The new facility will
allow data sources to be described by schemas and their content to be
indexed and located. Sophisticated query-oriented database-style
operations will be possible over simple or complex data sources, and
new views of multiple data sources can be created and shared with
other clients. A new class of data processing services will be
possible to collect, manipulate, analyze, and store data.

The first goal of project is to define the basic architecture of a
client, allowing it to share its data with other peers, participate in
distributed query processing, and cooperate with other clients. A
specific data integration formalism will be designed that will allow
clients to integrate their data with others' using both global-as-view
and local-as-view data integration paradigms. Building on this
arthictecture, a new query processing technique will be developed that
can adapt to both data integration paradigms. The project will then
develop intelligent data placement techniques for storing query
results on different clients, thus enabling dramatic performance
improvments for subsequent queries. The data such placed on servers
may become stale, when the source data gets updated: the project will
develop specific update propagation techniques for publishing and
disseminating updates. Finally, the project is developing novel data
indexing techniques that allow clients to search data items globally.